Asymptotic Equivalence of Statistical Experiments

NSF proposal DMS 0072162
Abstract
Asymptotic Equivalence of Statistical Experiments

Principal Investigator: M. Nussbaum, Department of Mathematics, Cornell
University, Ithaca, NY

The concept of asymptotic equivalence of experiments serves to compare
properties of statistical models. An experiment is a family of probability
measures; a distance is defined between these objects such that the
informational content of experiments with respect to the parameter is
similar if this distance is small. This basic deficiency pseudodistance
(or Delta-distance) has been introduced by L. Le Cam, generalizing the
concept of sufficiency. If experiments are equivalent via sufficiency
then their Delta-distance is 0; here equivalence via sufficiency
means that one experiment results from application of a sufficient statistic
to the data of the other.

Based on the idea of the Delta-distance, a theory of local
asymptotic normality (LAN-theory) of experiments has been developed which
has found widespread application in statistics. The idea of data reduction
which is at the heart of the sufficiency concept could thus be combined with
limit theorems of probability, resulting in approximation of general
statistical models by Gaussian shift families. These Gaussian shift or
translation families allow explicit expression for risk bounds in many
instances, and these risk bound then become valid in an asymptotic sense in
the approximated models.

The limitation of the LAN-theory consists in its restriction to a
local setting, in which the rate of localization is tied to the
normalization rate in the central limit theorem (the classical root-n in
most cases). This setting precludes application of the resulting risk bounds
to the class of ill-posed function estimation problems. The emphasis of the
current project is on the treatment of this problem class (which includes
nonparametric density estimation) by methods involving the Delta-distance.

The restriction to a local setting (or alternatively, a finite dimensional
setting) which is inherent in the LAN-theory has been overcome in recent
years, by efforts of Brown and Low (1996) and by various
results of the P.I. and collaborators, starting also in 1996
(asymptotic equivalence of density estimation and Gaussian white noise).
The main tool has been approximation of general likelihood processes by Gaussian
ones, using coupling methodology. The present project focuses on elaboration
and extension of these results, with two main directions:

(i) constructive realization of equivalence in nonparametric models,
enabling explicit equivalence mappings (direct transfer of decision
functions)

(ii) equivalences in nonparametric models for dependent data (time series
and diffusion process models).